Problems in Probabilistic Combinatorics

1. The proposed project covers several topics in Probabilistic
Combinatorics. The first group of questions is about graph colorings.
It mainly deals with the study of chromatic and choice numbers of
graphs satisfying certain local conditions. One of the open problem
which investigators will study is bounding the chromatic number of a
graph G with maximum degree d, which contains no copy of a fixed graph
H. A variant of this problem was posed already twenty years ago by
Komlos and Szemeredi and so far it was solved only for some special
cases. Investigator also plans to work on a few related questions
about vertex list coloring and acyclic edge coloring of graphs.
Another set of questions is about asymptotic properties of random graphs
and random regular graphs. Here investigators goal is to understand
the distribution of independent sets of nearly optimal size in sparse
random graphs, and use this to determine the asymptotic behavior of
its choice number. It is sometimes the case that an existence proof,
supplied by the probabilistic method, is not sufficient and it is
better to have an explicit construction. One of the major open
problems in this field is to construct exponentially large graphs,
without a clique or an independent set of size k. In this project
investigator intends to consider this problem together with its
bipartite version. He also plans to study the properties of
pseudo-random graphs and their applications.

2. Leave nothing to chance. This cliche embodies the common belief
that randomness has no place in carefully planned methodologies.
In modern Combinatorics at least, nothing can be further from the
truth. Here the Probabilistic Method has been developed intensively
and become one of the most powerful and widely used tools.
Use of probability proved to be helpful in tackling many long
standing open problems. Another major reason for the development of
this method is the important role of randomness in Theoretical
Computer Science. Here algorithm which make random choices during its
execution proved to be simplest and fastest for many applications.